Travel To Attend: 13th Biennial International Conference-In-ternational Assoication on Water Pollution Research and Con-trol August 12-22, 1986 Sao Paulo & Rio De Janiero - Brazil

Support is provided for travel by this investigator to conferences on river basin management and water pollution research and control. At the conference on river basin management in Sao Paulo, he will present a paper on environmental impact analysis as related to water quality management in rivers. His participation in both conferences is relevant to his work on a recently formed Task Committee of the American Society of Civil Engineers on Large Water Bodies and as Chairman of the Technological Considerations Committee of the International Joint Commission.